Increasing the Value of Education for Secondary Teachers in STEM

This Noyce Track 1 project at Longwood University aims to address the national need to prepare and retain highly qualified secondary science and mathematics teachers for high-need rural school districts while strengthening the nation's STEM workforce. An underlying aim of the project is to build pathways from community colleges to a four-year STEM degree and teaching licensure. The project will provide scholarships and academic and co-curricular support to twenty (20) talented undergraduate students who are majoring in biology, chemistry, mathematics, or physics and are committed to a STEM teaching career. Through mentoring and community building, the project will support students as they complete their associate and bachelor’s degrees and, after graduation, enter the teaching profession. Teacher preparation and induction will emphasize strong content and pedagogical knowledge and will target development of community-driven competencies. This will enable high-need schools across the Commonwealth, including rural Virginia, and other areas nationwide to provide their K-12 students with a strong science and mathematics education.

The project includes partnerships with Patrick and Henry Community College, Virginia Western Community College, and local educational agencies in Prince Edward, Henry, and Franklin counties in Virginia. The project will be guided by several goals. The first goal is to establish a cross-institutional team of faculty and staff members committed to recruiting undergraduate STEM majors and preparing them to become certified teachers. Working with that team over the five-year duration of the project, as a second goal, the investigators will recruit and provide financial and enhanced programmatic support to twenty (20) high-quality undergraduate STEM majors, of whom approximately 75% will be community college transfers, to prepare them to teach biology, chemistry, mathematics, or physics in high-need rural schools. Using a grow-your-own approach of recruiting students from their local areas and later placing them as STEM teachers in these same areas, the project will address critical teacher shortages in rural Southside and Southwest Virginia and beyond. Project activities will incorporate high-impact educational practices, including faculty and peer mentoring, a summer bridge experience, cohort development, and participation in a professional community of practice designed to support teacher preparation, induction, and long-term retention. For a third goal, the project will foster comprehensive, mixed-methods formative and summative evaluation to: (1) provide data-driven feedback that informs continuous project improvement and (2) generate evidence-based new knowledge for recruiting, supporting, preparing, and retaining community college and other students to become successful STEM teachers in high-need rural schools. Consistent with NSF priorities, project activities will create opportunities that are broadly accessible to students from all backgrounds while emphasizing support for communities that experience geographic and workforce-related barriers to educational access. The collaborative partnership will further strengthen Longwood University's efforts to expand pathways into STEM teaching careers for students throughout rural Virginia and increase the capacity of local schools to prepare future STEM professionals and informed citizens. As the final goal, project outcomes, evidence-based practices, and lessons learned will be disseminated through peer-reviewed publications and presentations at state, regional, and national conferences. Dissemination efforts will promote scalable approaches for strengthening STEM teacher recruitment and retention in rural communities nationwide and contribute to the broader national effort to build a robust STEM educator workforce that advances scientific literacy, economic prosperity, and national competitiveness. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.